The Southern California Access Center and Network

This prototype project includes several activities to strengthen minority education from the early grades through the baccalaureate degree. It was developed under the leadership of California State University-Los Angeles, with cooperation from other California State University institutions in the Los Angeles Basin, the Los Angeles School System, and business and industry. During the first year of operation, a set of activities, based on science and mathematics experiences, and designed to nurture, encourage and motivate minority students, are being implemented. These include a Minority Math/Science Program, a retention activity focussed at the undergraduate level, which is patterned after a successful, ongoing Minority Engineering Program established earlier in the region. Critical elements of this program include academic support, tutoring, personal counseling, a student study center, summer job placement assistance, and participation in student organizations. At the precollege level, a Saturday Science Project for elementary school students and teachers is being offered. Science Skills Centers which offer enriched classroom experiences for students and provide a setting for undertaking improvements in junior high mathematics are being established. In addition, a Summer Science Institute is being conducted in which curriculum development activities occur, through joint efforts by university and precollege faculty.